NSF Young Investigator

Technical abstract: An experimental investigation will be carried out of low temperature transport in mesoscopic semiconductor structures. Particular attention will be placed on exploring the connection between randomness in quantum transport and quantum signatures of classical chaos. Applications include the use of feedback control of phase-coherent transport for the purpose of developing semiconductor quantum dots to operate as low-noise magnetometers. Nontechnical abstract: The focus of the research is to understand the physics which governs the motion of electrons in ultrasmall devices. Recent results indicate that when the electrons can travel distances larger than the device dimension without appreciable scattering by impurities and other defects then the geometry of the device becomes a significant factor in determining the electron's motion. This sensitivity to geometry can be a useful tool to study the underlying mechanisms of chaotic motion and to ultimately design new devices. The proposed research will be carried out at low cryogenic temperatures and in very high quality semiconductor structures to increase the mobility of the electrons. :